Mathematical Sciences: Differential Equations in the Complex Plane

DMS-9510336 Steinbart Steinbart will investigate the solutions to differential equations in the complex plane having entire functions as coefficients. In particular, she will study the growth properties of such solutions in the case when one of the coefficients is transcendental. This award is a planning grant that will allow the PI to further develop her independent research program and to develop a competitive NSF grant proposal. It will provide funds to support her participation in the XVI Rolf Nevalinna Colloquium, an international conference specializing in complex analysis and related topics.